Melatonin and the Neuroendocrine Regulation of Birdsong

European starlings (Sturnus vulgaris), like other temperate zone songbird
species, breed seasonally. Surprisingly, it was discovered previously that
these seasonal changes in reproductive activity are associated with marked
changes in the morphology of brain areas that regulate singing behavior.
Increases in the volumes of song control brain areas in the spring largely
depend upon seasonal increases in circulating testosterone. Recent studies
suggest that there are gonad- and testosterone-independent seasonal changes
in the volumes of song nuclei. Our initial findings indicate that the
hormone melatonin might mediate these testosterone-independent changes in
the song system. Melatonin concentrations in plasma are high during the
dark phase of the circadian cycle. This results in a seasonal change in
the pattern of secretion; longer durations of high melatonin in fall and
winter and short durations of high melatonin in spring and summer. The
experiments described in this proposal will test the role of melatonin in
regulating seasonal changes in birdsong. These experiments include the
manipulation of endogenous melatonin via the removal of the pineal gland as
well as the direct infusion of melatonin into brain areas controlling song.
Changes in the morphology of the song nuclei and in song behavior will be
measured.